Interruption Phenomena in Vacuum at Short Contact Gap

This research is aimed at establishing the source of physical events that occur in vacuum switching that lead to undesirable operation. The work involves both experimental and analytical efforts. The research has the potential to contribute to a better understanding of and improvements in the quality of switching elements.